The Southeast Michigan Alliance for Reinvestment in Technological Education (SMARTE) Project

Mulchand S. Rathod DUE 9553692 Wayne State University FY1995 $ 149,900 Detroit, MI 482023900 Advanced Technological Education Title: The Southeast Michigan Alliance for Reinvestment in Technological Education (SMARTE) Project Alliance Members: There are seven community colleges who are part of SMARTE (Southeastern Michigan Alliance for Reinvestment in Technological Education). The Alliance also represents K-12 school systems, a major state university, community-based organizations, government agencies, labor, business, and industry interests in southeastern Michigan. Overall Goal of the Project 1. Develop a SCANS based model for manufacturing program, which will map the standards in each of the three disciplines: product design, industrial controls, and manufacturing. Specific tasks to be accomplished will be involve: identification of skill standards which relate to engineering technologies, organize workshops to review skill standards, create model competencies, study professional organization certification procedures, and provide access to the information on curriculum, and certification via WWW SMARTE alias. 2. Establish pilot enrichment programs for students that will begin preparation for coursework in the technologies as early as elementary school grades. This would result in holding at least one two-week intensified summer institute for the local public school students, and at least two workshops at community college sites to encourage elementary and middle school students primarily minorities and females into technology fields. 3. Develop curriculum in product design, and this curriculum will be shared with faculty and teachers of the conso rtium through a "hands-on" workshop.